Experiments in Computer Coordinated Decentralized Resource Allocation Systems

This project is to conduct laboratory experiments to producedata for analysis of computer coordinated decentralized resourceallocation systems. The work concentrates on a new research initiative to develop computer coordinated bidding models of (1) process allocation and (2) capacity planning for central processing (computer) unit (CPU) services. (1) is formulated as a linear program, while (2) is an integer program, for maximizing system surplus value: the inputs are bids for processing time, or component values and budgets in the capacity problem; the outputs of the reported surplus maximizing algorithms are service time allocations and cost allocations in capacity problem. Allocative efficiency will be evaluated by the ration of actual monetary surplus earned by subjects to maximum possible surplus based on induced assigned values and budgets. Some research will also continue on somewhat related problems in networks--particularly networks of natural gas pipelines and of electric power supply. This work is relevant to understanding how to design and to efficiently allocate time and equipment in decentralized computer networks.